Acquisition of a Mass-Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Oregon in Eugene will acquire a mass spectrometer with atmospheric electrospray and chemical ionization sources, an interfaced liquid chromatography instrument and a central computer controller with data analysis software. This equipment will enhance research in a number of areas including a) novel aromatic and metalla-aromatic systems; b) small-ring metallacycles; c) organic and medicinal chemistry; d) studies of radical cage effects in photochemically degradable polymers; e) solid-state inorganic materials; and f) molecular organization of conjugated polymer solids and two-dimensional peptide crystals.

Mass spectrometry is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including medicinal, polymer and solid-state chemistry.